Collection of Mutant Types of Drosophila Melanogaster

The Bloomington Drosophila Stock Center collects, maintains, and distributes genetic stocks of the fly Drosophila melanogaster. The sophisticated genetic tools developed in Drosophila over the past 85 years make this insect a powerful model organism for biological research. The collection currently consists of over 6,400 different genetic stocks including visible, lethal and sterile mutations (34% of the collection), chromosome aberrations (30%), marked transposon insertions (30% of holdings), and special-purpose stocks (6%). An electronic database allowing users full access to up-to-date information about stocks available from the collection. In addition, Center scientists are available to answer questions and provide advice on the use of these materials. The Center is heavily used, with 38,147 subcultures provided during 1997. Academia-based research received 98% of the stocks provided in 1997, 63% of these within the U.S. and the remaining 37% spread among 35 countries. This resources contributes to scientific progress primarily by assuring that a wide variety of documented strains of current researchers of the burden of providing large numbers of stocks to colleagues), and by promoting the effective use of available research materials through information services.